SBIR Phase I: Advanced Light Weight Thermal and Electrical Insulation Using Fullerenes

This Small Business Innovation Research Phase I project will develop as well as establish technical and commercial feasibility of the advanced low weight thermal and electrical insulation materials using fullerenes. This approach combines high reflectivity of metal foil and high absorptivity of low thermal conductivity fullerenes in attempt to produce effective structurally integrated low cost insulation material, which is expected to be much thinner than any other option currently available on the market. During the course of investigation, the proposed insulation materials will be fabricated and fully characterized in terms of density, thermal conductivity as well mechanical integrity and compared with other candidate materials. The approach should provide viable solutions to various heat management problems in numerous fields.
If proved viable, this insulation will find extensive applications in rockets and satellites, cryogenic industry, electronic devices, fire-retardant packing materials, thermal insulators for temperature-sensitive products, insulative clothing, insulation of buildings, cars, refrigerators, water heaters, etc.